Semi-annual Workshop in Dynamical Systems and Related Topics at Penn State

Katok DMS-1800679

This award provides funding for participants in ``Semi-annual Workshop in Dynamical Systems and Related Topics at Penn State'' for the three years 2018, 2019, and 2020. The workshop is devoted to recent developments in dynamical systems and many applications to other disciplines. The workshop has been funded by NSF for the past ten years. The workshop always attracts a considerable number of participants from other regions of the United States and other countries. Approximately 20 junior participants will be supported each year.

More information will be made available at: https://math.psu.edu/dynsys/workshop